U.S. Joint Global Ocean Flux Study: Planning, Synthesis, and Data Management

9729181 Bacon The principal investigator and his colleagues at the Woods Hole Oceanographic Institution will continue to management center for the U.S. Joint Global Ocean Flux Study (U.S. JGOFS). This will include the planning of workshops for the U.S. JGOFS Synthesis and Modeling Project and operation of the Data Management Office as well as coordination support for closing out the U.S. JGOFS process studies and the continuation of the time-series stations at Hawaii (HOT) and Bermuda (BATS).